Interference Effects in Conductors and Superconductors

9625370 Spivak Quantum interference phenomena in small size metals and superconductors are going to be studied in this grant. The general area is better known as mesoscopic physics. In this grant the specific projects also involve interfacial phenomena. There are planned studies of small metallic samples, of alternating ferromagnetic and nonmagnetic metallic layers, of superconductor-normal metal junctions and of small superconductors. All of the work will be carried out using Green function, diagrammatic techniques and procedures developed by the PI and his collaborators. %%% Given the shrinking size of the electronic devices, a new area of physics has developed, called mesoscopic physics. In this area the focus is on quantum interference and its consequences in small metals and superconductors. The PI has been active in studying this subject and is widely recognized for his seminal contributions. As a continuation of this program, the present grant contains planned extension of these ideas to situations where interfaces play an important role. ***